Doctoral Dissertation: Market Transition of Xiagang Workers in Urban China

This dissertation research analyzes results from a 1999-2000 survey of current and laid-off (xiagang) workers from six Chinese cities. Outcomes being studied include layoffs, earnings, and job search strategies. Among individuals, variations in human capital (education, experience) and political capital (party membership, cadre status) determine these outcomes, but the relative importance of these determinants depends on firm-level factors (e.g., productivity) and city-level factors (e.g., degree of market development). Additional firm and city data will be collected to supplement the existing survey data. Qualitative data will also be added to explore individual workers' rationale for leaving state enterprises and their understanding of the new labor market structure.